Electric-Field Effects in High Temperature Superconducting Thin Films

9404579 Venkatesan Technical abstract: Focus will be on the study of electric-field effects in high Tc superconducting thin films, a topic closely related to the development of three-terminal superconducting devices. The objective is to obtain a comprehensive assessment of the prospects for high Tc Supercccconducting Field-Effect Transistors (SuFET). Based on the existing data, two material problems have been identified as the limiting factors for the current device performance: the quality of the SrTiO3 (STO) dielectric layer and the quality of YBCO ultrathin films. In support of the project objective, work will be done in these two directions to improve the device properties. In addition to the study and optimization of the device characteristics experiments on unique SuFET applications, such as in SQUID circuits and microwave resonators will be continued and also extended to new device concepts. At the same time, the basic study of the physics of field effects in high Tc superconductors will continue. Non-technical abstract: The aim of the program is to investigate the effect of electric fields on the properties of the high temperature superconductors. It has been shown that by use of electric fields the transition temperature and the maximum current carrying ability of superconductors can be modified. Thus, one may be able to design novel devices where the device properties are modified by the use of electric fields. In order to understand the science as well as the full device potential of this phenomenon it is essential to fabricate high quality thin film based structures. One of the goals of this program is to understand and optimize the materials growth process. It is expected that a better understanding for the potential of three terminal superconducting devices will emerge from this program. ***